Collaborative Research: IPY: Beneath Antarctic Seas: Visual Documentation of the Marine Ecosystems of the Polar Regions

Norbert Wu and collaborators will create an extensive library of visual media documenting polar marine ecosystems in Antarctica. The PI will partner with the BBC to film and photograph images of marine life in Antarctica at McMurdo and the PI will also film at Palmer. Some of the video footage will contribute to the BBC Natural History Unit production, Life, to be released in 2010. The video and still imagery will also be used to extend the Underwater Field Guide to McMurdo Sound maintained by Scripps. The series of podcasts will profile women researchers at both McMurdo and Palmer. The Ocean Institute will use material as part of their polar science education curricula, "Girls in Ocean Science." Archived materials will be made available to both scientists and the public, and other interested publishing and broadcasting entities, including a number of existing IPY projects. The visual media produced during this project are designed for national and international distribution to enhance the legacy of the International Polar Year.